Data Analysis and Simulation for Nuclear Physics with the CLAS Detector at Jefferson Laboratory

9971916
Elouadrhiri
This Proposal will allow the CNU Nuclear Physics Group to continue
a research and educational program at the Thomas Jefferson National Laboratory.

The proposed research program will contribute significantly to our
understanding of both nucleon structure and non-perturbative Quantum Chromodynamics (QCD).
The physics program includes a detailed analysis of the N-Delta Axial Vector Form Factor an approved experiment for which data has
already been taken. The program also includes a measurement of the Neutron

Magnetic Form Factor, for which data will be taken early next fall.
This proposal will allow us to make important contributions
to the Partial Wave Analysis (PWA) of the N* program and to develop a web-accessible database of CLAS results.

In addition this proposal will allow the CNU nuclear physics group to
begin a major simulation effort designed to understand the acceptance and response of the CLAS detector for large variety of reactions. This simulation is critical for the extraction of cross sections.

Moreover, the proposal will allow us to continue to enhance and
upgrade the data acquisition system, hardware and software, for the CLAS detector.

Support of this proposal will allow the CNU Nuclear Physics group to
continue its excellent educational record. The proposed projects
provide many opportunities for our undergraduate and graduate
students, in physics, computer science and computer
engineering.